United States-Argentine Workshops on Coastal Ocean Space Utilization: Engineering Research and Environmental Implications

The New Jersey Marine Sciences Consortium proposes to lead the U.S. effort in concluding U.S.-Argentina workshop series in Coastal Ocean Engineering Research with due regard to the coastal environment. The first workshop was held in Buenos Aires and the second and last would be held in the United States at Miami, Florida. The subject matter for both workshops will be approximately the same, but the specific content of the second workshop will be based on the results of the first workshop and the need to fulfill the objectives of the project. The objective of this workshop is to enable the United States and Argentina to gain mutually from collaborative discussion of common research needs in developing coastal ocean space and how best to approach them. In this connection, two projects already in conceptual stages, are being planned. The New Jersey Marine Sciences Consortium will act as rapporteur and assume responsibility for preparation of a report covering the workshop. The report will include, in addition to the presented papers and dialogues; thoughtful extractions of the sense of the meeting and recommendations for future actions therefrom. Copies of these reports will be distributed to the participants, sponsors, and others.